Informatics Center for Mouse Neurogenetics

IBN-0003982
NIH/NSF Human Brain Project
PI: Robert W. Williams
Informatics Center for Mouse Neurogenetics

The purpose of this project is to develop and exploit a suite of image databases, motorized Internet microscopes, and software to study the genetic basis of structural variation of the mouse CNS. Resources are open to the research community through an integrated web interface at <nervenet.org>. The focus of this project is to provide collaborative research environments for mapping quantitative trait loci (QTLs). QTL analysis is a burgeoning field that tackles complex biological traits modulated by many genes. Four new resources and technologies will be developed: 1) the Mouse Brain Library, 2) the Internet Microscope System, 3) the NeuroCartographer Project, and 4) the Neurogenetics Tool Box. Achieving the aims of these four projects will catalyze a new era in the structural analysis of the adult mammalian nervous system and will lead to a large number of novel lines of research on the development and aging of the human brain.

This research is funded in part by the National Science Foundation through its participation in the Human Brain Project, which is a Federal interagency research initiative, mandated by Congress as part of the "Decade of the Brain".